Research Planning Grant: Inference Techniques for Estimatingthe Variance of Means of Simulation Output Data

The objective of this Research Planning Grant is to obtain precise, steady-state estimates of the variance of the sample mean from simulation output data. A new inference technique is proposed for estimating the variance by augmenting existing estimators and their performance. The research effort includes theoretical development of the techniques and empirical studies in comparison with other estimators to benchmark performance. The long-term goal of the required follow-up study is the design of an automatic run length control system for steady state simulation studies. This research is anticipated to make theoretical and practical contributions to the knowledge base of computer simulation experiment analysis.